Coring in San Francisco Bay to Obtain A Record of Paleo-Streamflow from the Last Interglacial

Abstract
ATM-9908416
Ingram, Bonnye
University of California, Berkley
Title: Coring in San Francisco Bay to Obtain A Record of Paleo-Streamflow from the Last Interglacial

This SGER award supports coring and preliminary dating and analysis of cored sediments, and to test the feasibility of using last interglacial estuarine sediments, and to derive a record of paleo-streamflow and environmental change in San Francisco Bay. Recent investigations of San Francisco Bay paleosalinity using isotopic compositions of fossil mollusk shells from sediments cores, reveal significant variations in inflow on decadal-to century-time scales during the late Holocene. The salinity trends indicate that extended periods were much wetter, and others much drier, than the present time. A high-resolution study is important to detect decadal- to century-scale changes in the Bay related to climate fluctuations.